Scientific Computing Research Environments for the Mathematical Sciences (SCREMS)

The Department of Mathematics and the Institute of Theoretical Dynamics at the University of California will purchase a Servernet-II based Beowulf cluster consisting of 32 Digital 21264 CPUs which will be dedicated to the support of research in the mathematical sciences. The equipment will be used for several research projects, including in particular the following five projects.

Computational Studies of Flow in the Thoracic Aorta - Angela Cheer

Large Scale Numerical Linear Algebra Problems - Zhaojun Bai

Computational Modeling of Micro-scale Jetting Processes with Industrial Applications - Elbridge Gerry Puckett

Object Characterization using Vector-Valued Sensor Data - N. Saito

Constructing conservative and dissipative differential equations - S. Shkoller